Improving Sequence Proximity Search

Finding sequences similar to a given query sequence in a large data set
is a fundamental problem in many database applications including
computational genomics and proteomics, computational finance, audio, text
and multimedia image processing. This proposal considers proximity search
problems for strings and sequences in such applications where existing
methods typically employ distance functions based on character edits only
(commonly unweighted edit distance) and modify off-the shelf index
structures to improve search efficiency. However, in many applications
block edit operations such as translocations, deletions and copies, as well
as linear transformations on strings are as common and important
as character edits.

Unfortunately, computation of distance measures that allow block edits
are generally known to be NP-hard. Thus the investigators propose to work
on practical methods for approximating the block edit distances and performing
approximate searches under such measures. These measures are many times
not symmetric (transforming a long sequence to a short one may be
performed through a single deletion whereas transforming the short
sequence to the long one may require many copy operations) or do not
satisfy the triangular inequality (string space under edit operations is
fundamentally different from Euclidean space) and thus do not provide a metric.

However many of them can be proven to be almost-metrics, i.e.,
the symmetry and/or the triangular inequalities may be satisfied within
multiplicative constants. This property can be fundamental in sequence
proximity search as it seems possible that known distance based indexing
methods for metric spaces could be extended for use in almost-metric
spaces. Thus a main component of the proposal is the investigation of
the limitations and extendibility of distance based indexes for
almost-metrics and other string/sequence measures which may be
non-symmetric or fail to satisfy the triangular inequality because they
allow block edits.

An alternative/complementary approach to distance based indexing is based
on approximate random mappings of the space of items to be searched to
Euclidean spaces. This general strategy has received considerable
attention in the context of vector spaces. The mappings used guarantee
(with high probability) to reduce the number of comparisons during search
from linear to poly-logarithmic, provided some error of approximation can
be tolerated in the answers obtained. This approach was later generalized
to sequence spaces through a mapping of sequences under block edit distance
to binary strings under Hamming distance. The error tolerance is not
very practical. Thus a second component of this proposal is to obtain
novel mappings of sequence spaces to Euclidean spaces within smaller
approximation errors. The goal is to generalize such mappings to both
character and block based edit distances, especially those which assign
weights to edit operations (that reflect the likeliness of that
particular edit).